Instrumentation for a Modern Undergraduate Neurobiology Laboratory

This award provides funds to the Department of Biology at Case Western Reserve University to develop a modern laboratory course in neurobiology for undergraduates. The course will include an introduction to the major concepts and techniques of modern neuroscience. Specifically, it will demonstrate (1) the biophysical properties of the membranes of nerve cells using the techniques of patch clamping, (2) the chemical properties of nerve cells using the techniques of immunocytochemistry, and (3) the electrical properties of nerve cells and their connections using the techniques of electrophysiology. This laboratory will form a central part of a "track" in neurobiology which is currently being implemented by the Department of Biology. It is one of a series of tracks which will involve leading researchers, state-of-the-art equipment, and opportunities for research projects, will attract larger numbers of undergraduates, including women and minorities, into the sciences. Neurobiology is especially effective in drawing students into scientific research because of its focus on the cellular basis of animal land human behavior, and its clinical relevance. The grantee is matching the award with non-Federal sources.